RUI: White Dwarfs in Cataclysmic Variables: Probes of Evolution and Accretion Physics

AST-0507514
Edward Sion
Villanova University
White Dwarfs in Cataclysmic Variables: Probes of Evolution and Accretion
Physics
Abstract
A survey of surface temperatures, rotation rates, and chemical abundances of white dwarfs in
cataclysmic variable systems (both magnetic and non-magnetic) will be performed. The principle
tools to be employed are multi-component synthetic spectral fitting over a wide wavelength range
(X-ray, uv, visible) and evolutionary model simulations with time varying accretion. Particular
attention will be paid to the properties of the white dwarfs and boundary layer structure in nonmagnetic,
disk-accreting systems when they are exposed during the quiescences of dwarf novae and
the low optical brightness states of nova-like variables, as well as the properties of the white dwarfs
in magnetic CVs (polars and intermediate polars) when they are in low brightness states. The
overall goal is to better understand the ages, evolutionary histories, masses, diffusion rates, angular
momentum transfer mechanisms, nucleosynthesis histories, and many other aspects of these white
dwarfs and cataclysmic variable systems, which in turn will yield insight into novae, Type Ia
supernovae, and Galactic chemical evolution.
Several undergraduate students will be involved in all aspects of these studies, from acquisition, to
reduction, to analysis, to publication of results in journals and presentations at national meetings.